POSE: Phase I: CarDreamer: Towards an Open-Source Ecosystem for World-Model Based Self-Supervised Learning in Autonomous Driving

This Pathways to Enable Open-Source Ecosystems (POSE) project will enable CarDreamer, the first open-source ecosystem (OSE) focused on resources for the autonomous driving community of researchers. CarDreamer is a bridge that fosters collaboration across communities working to advance artificial intelligence (AI) technologies for autonomous driving. It addresses the needs of its stakeholders, ensuring a cohesive research and development pipeline. Through a variety of scoping and planning activities carefully designed for ecosystem discovery and community building, the CarDreamer OSE will engage potential users and content contributors and provide a suite of tools enabling them to develop their own AI functionalities and seamlessly integrate with other modules, thus catalyzing the sustainable, long-term growth of the OSE.

This POSE project will develop CarDreamer as a comprehensive educational resource for embodied AI and the autonomous driving community. The project will help equip a workforce with the skills required to navigate the evolving challenges and opportunities presented by embodied AI and self-supervised learning (SSL) for autonomous driving. The flexible and modular design of the CarDreamer OSE enhances a concerted effort across communities in academia and industry, addressing the needs of different stakeholders in the autonomous driving community and ensuring an integrated research and development pipeline for world-model-based SSL. By providing hands-on experiences, the project invites a broad community, including K-12 students and educators, to engage with complex technological concepts. Engagements, such as hosting summer interns from community colleges, will position to the project to prepare the next-generation workforce in AI technologies for autonomous driving.